Geometric mechanics of charged ribbons

Putkaradze
DMS-0908755

The investigator develops equations of motion for elastic
strings with rigid "bouquets" of charges that may swivel around
the elastic base. In addition to elastic energy of the bend,
arbitrary nonlocal interactions between the charges are
considered. The studies are kept completely general and can
include electrostatic interactions, the Lennard-Jones
interactions preventing self-intersection of the string, or any
other nonlocal interactions. The investigator and his colleagues
derive an exact geometric theory of the motion of the nonlocally
interacting elastic strings and apply it to a variety of
problems. This theory is based on the Simo-Marsden-Krishnaprasad
theory of exact elastic rods. After the theory is derived, an
explicit method for computing exact helical solutions of the
equations is found. The investigator also shows that for
geometric reasons, an explicit dispersion relation for the
propagation and stability of linear waves on helical solutions
can be derived. This technique also provides a method for
computing linear combinations of elastic constants if the shape
of helical molecules and the interactions between the charges are
known. The investigator also derives a discrete analogue of the
equations allowing a wide class of exact solutions, called
n-helices. These are discrete helices with the pattern repeating
after n shifts. The bifurcation structure of these discrete
n-helices is examined. Finally, it is shown how to use helices
as basic building blocks for construction of more complex
molecular conformations.

Long chains of organic molecules, like proteins, form the
basis of all life on Earth. The shape of these molecules plays a
crucial role for their function in a living body, and thus
understanding of the inner structure of these molecules is an
important task. It has been found that the inner structure of
many proteins consists of tightly wound helices, and those
helices are packed together in a complex fashion. The helices
are held together by a complex interplay of electrostatic and
elastic (and other) forces. How can one describe the formation
of these complex shapes? Why are helices so ubiquitous in
Nature? The investigator and his colleagues approach these
questions by deriving a theory of molecular chain evolution that
can include many possible interactions between individual atoms.
The investigator shows that, because of geometric reasons,
helices are stationary states for simple molecules, no matter how
complex the interaction between the atoms may be. This theory
forms a basis for understanding of the inner structure of
biological molecules and their dynamics. Better understanding of
the spatial structure of molecules and their formation helps in
designing better polymers for the chemical industry, better drugs
for medical applications, and materials with novel and improved
properties for high-tech engineering of the future.